Inter-Tribal Education Coalition - Rural Systemic Initiative

9554458 The project will conduct a regional self-study to determine optimum strategies to accomplish systemic educational reform and economic development in a region characterized by high poverty and lack of resources. The principal investigator has established a coalition among American Indian education centers, tribal education boards, reservations, state agencies and NSF systemic initiatives in the region that includes California, Nevada and Arizona. The development phase will result in an implementation plan that addresses the barriers faced by American Indian students in the region, and capitalizes on opportunities to create community based support for equitable access to science, mathematics, engineering and technology education. The strategies employed will include local, regional and multi-State conferences, bringing together the key education and community stakeholders. ***